Travel: ACM SIGSPATIAL Conference 2026: Student Activities and U.S.-Based Students Support

The Association for Computing Machinery (ACM) Special Interest Group on Spatial Information (SIGSPATIAL) will host its 34th annual ACM SIGSPATIAL International Conference on Advances in Geographic Information Systems (ACM SIGSPATIAL 2026 in Riverside, California, from November 3rd to November 6th of 2026. This award provides travel support for 20 U.S.-based graduate and undergraduate students to attend the conference. The conference started in 1993 with the aim of bringing together researchers, developers, users, and practitioners centered on the use, research, and development of novel systems based on geospatial data and knowledge. Spatial data management and computing are critical to visualizing and analyzing geographic information, which is essential for applications such as analyzing remote-sensing images, generating 3D medical atlases, and processing the decennial census. The project serves the national interest by promoting the progress of science and advancing national prosperity through the development of a highly skilled workforce in geospatial technologies. By facilitating student participation in a premier international forum, the award enhances the integration of research and education while prioritizing on merit first-time attendees and those lacking alternative funding. Furthermore, because the conference proceedings will be published under an open access model, the contributions and knowledge shared will be freely available, maximizing the public benefit and increasing competitiveness in business, academia, and government sectors.

The primary goal of this project is to integrate emerging researchers into the geographic information systems academic and professional community. During the event, supported students will engage directly with technical sessions spanning topics such as spatial artificial intelligence, big spatial data, pervasive computing, Geospatial Artificial Intelligence (Geo AI) and spatial intelligence for autonomous vehicles. The scope of student activities includes participating in a doctoral symposium, networking events, and student research competitions. Additionally, attendees will have the opportunity to observe or participate in the annual geographic information systems data competition, which will focus on optimizing the distribution of communication antennas to serve urban environments. By participating in these activities and serving as conference volunteers, the awardees will gain essential professional development, technical knowledge, and mentorship from senior investigators in the field.